A project to Connect Arkansas Extension Professional to the Internet

This award establishes a prototype Internet connection for Cooperative Extension Service (CES) offices in Arkansas. The installation includes a router, line, modem bank and modems for six extension offices. The extension offices will reach the Internet connection over toll-free lines. This initial installation allows testing of the hardware and software, as well as determination of the training and support requirements. Future phases will expand the network to the almost three hundred CES agents in the State, who will use the Internet connection to access databases and other information resources to allow them to respond more quickly to their clients' information requests.